Presidential Faculty Fellows

9453453 Chang-Hasnain Topic areas included in this research grant include: two- dimensional semiconductor diode lasers and optoelectronic devices; novel epitaxial growth and fabrication techniques; and the applications of these devices in novel optical interconnects and communications architecture. Specific projects include single mode, multi-wavelength vertical cavity surface emitting laser arrays, novel micromachined wavelength vertical cavity surface emitting laser arrays, novel micromachined wavelength tunable laser and switches, and WDM optical networks implementations. ***